Design in Mechanics of Materials Courses for Deeper Learning

Engineering - Mechanical (56)

This CCLI Phase 1 Exploratory project is developing open-ended mechanics of materials design projects and supporting them with an Internet resource. This resource will include all the necessary tools to complete the project such as: the design process with interactive examples, analysis and simulation tools, materials properties and selection resources, instructor and student resources for team projects, as well as information about environmental, economical, social, and ethical issues. The trial project is being used in mechanics of materials courses for engineering and engineering technology courses on the main campus and regional campuses of a university system. These project-based modules are adding deeper learning experiences to the middle of the undergraduate engineering curriculum in addition to those that already exist at the beginning (cornerstone) and end (capstone) of the curriculum. Student proficiency at interpreting requirements and conceptualizing a design as well motivation to pursue engineering as a profession are being assessed in the evaluation plan. The modules are available on a website. Project results are being promoted at national professional conferences and in publications.